Research in Theoretical Nuclear Physics

This research involves new and continuing work on the theoretical description of nuclei, and nuclear collisions at all available energy scales, as well as work on other quantum many-body systems.